NER: Exploring the Limits of Nanoparticle Removal with Pulsed Lasers

ABSTRACT

Proposal No. CTS-0210242
Title NER: Exploring the Limits of Nanoparticle removal by Pulsed Lasers

Principal Investigator: Cetinkaya, Cetin
Clarkson U.

A method for removal of nanoscale particles based on pulsed laser particle removal technology is being proposed. The novelty of the method is based on the removal process based on rotation and removal of the particle instead of the translation and removal. It is well established that removal through particle rotation would require a fraction of the force compared to removal by axial force. The PI proposes to develop a fundamental understanding for modeling the dry removal process of nanoparticles with pulsed lasers, to study the potential damage mechanisms and to determine techniques for avoiding damage in required fluences, to perform experiments to improve and confirm analytical models, and to determine a parameter space for an efficient, practical dry cleaning technique.